WGIDP: Gender Balanced Education: A Professional Develop- ment Program for Educators Counseling Girls in Virginia

This project, developed by the Virginia Space grant Consortium (VSGC) proposes to implement a state-wide Institute for gender balanced education to serve K-12 counselors. Over three years, 50 counselors will receive graduate credit for Institute participation. Included in the Institute is a distance learning component using a variety of mechanisms for information delivery concerning gender equity issues. Participants will receive minigrants to pursue activities implementing gender fair educational practices in their individual schools. The primary goals of the project include raising awareness about gender issues as they relate to the interest and success of girls in elementary through secondary schools and assisting counselors in fostering a gender fair learning environment in their work with teachers, administrators, parents ad students.